Oceanographic Instrumentation 2010

A request is made to fund additional and back-up instrumentation on the R/V Thomas Thompson, a 274’ general purpose Global research vessel and the R/V Clifford Barnes, a 66’ general purpose Coastal vessel. Both vessels are operated by the University of Washington as part of the University-National Oceanographic Laboratory System research fleet. The request includes two items listed by priority:

1) Knudsen Chirp 3260 Deep Water Echosounder System
2) So-Low C85-12 -80°C freezer

Broader Impacts: The acquisition, maintenance and operation of shared-use instrumentation allows NSF-funded researchers from any US university or lab access to working, calibrated instruments for their research, reducing the cost of that research, and expanding the base of potential researchers.